Geometry Symposium

The goal of this three-year project is the revitalization of high school geometry under a model in which the university gradually transfers to the schools the responsibility for curriculum development. Under the guidance of the district's mathematics supervisor, a university mathematics educator, and a research geometer, 16 high school mathematics teachers from a school district in Northern California will study new topics in geometry and related classroom activities and will develop 24 curriculum modules. Throughout the course of the project, the participants will meet for two hours per day with the project staff. Printed materials and videotapes will be used for dissemination, and the evaluation will assess the project's effect on teachers' knowledge of geometry, their teaching skills, and their students. An amount equal to 25% of the NSF award is being contributed as cost- sharing by the Campbell Union School District.